Chapman Conference on Water Vapor in the Climate System; Jekyll Island, Georgia; October 1994

This award provides travel support for U.S. graduate students to attend the Chapman Conference on Water Vapor in the Climate System, sponsored by the American Geophysical Union. The conference will be held in Jekyll Island, Georgia in the fall of 1994. The conference focus is on the understanding the role of water vapor in the climate system and how to best to observe and measure water vapor for climate purposes.